Collaborative Research: Influencing Millennial Science Engagement

As part of its overall strategy to enhance learning in informal environments, the Advancing Informal STEM Learning (AISL) program seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants. This Innovations in Development project will research and produce science media based on the role that interest, motivations, identify, and values play in engaging diverse, millennial audiences in a dynamic media environment. Using a design-based research approach the project team will develop Millennial Science Media Engagement Profiles (a set of categories describing different audience types who engage with science media in different ways). It will design and test science media content (text, audio, graphics, video), placement and platform use for millennials; and make conclusions around science media storytelling and outreach tactics that spark interest and engagement, the precursors to learning. Broader impacts include contributing significant new knowledge about millennials interest and engagement in science while they are at a stage in life making critical career decisions. It will also provide a model for other science media producers providing new protocols for creating targeted digital media for this specific audience. And further impacts include reaching a large national audience through social media. The project is a collaboration between KQED and researchers at Texas Tech.

The research will focus on the distinctive experience and interest of "millennial" science consumers. It builds on a previously funded national survey and series of focus groups with millennials looking at their science media preferences versus other generations. With these survey results this project will build profiles of millennial audiences based on two factors: level of science curiosity and level of science media engagement. The researchers will use a previously validated Science Curiosity Scale. The Millennial Profiles will be validated in two ways: through performance-based survey questions and through internet audience behavior analysis using existing digital analysis tools. KQED will produce different science media content and send it to certain groups conducting A/B testing to validate profiles online. The profile assumptions will continue to be tested until the team can effectively predict the kinds of science content that different profile groups prefer. The research will use a study protocol used in other domains to bridge the gap between lab and real-world settings. The protocol involves four steps: initial hypothesis development; ante experimental simulation; real-world communication; and ex post experimental simulations. Following the profile validation, the protocol will be used to test the efficacy of new KQED Science content, testing the variables that contribute to millennial engagement.